Multistress Aging of Polymeric Insulators in Various Environmental In-Service Conditions

The proposal deals with investigation of multi-stress accelerated aging of polymeric insulators (silicone rubber) and coatings. It concentrates on field lab experiments on aged silicone conductors. This is basically field data acquisition with some post-test material analysis.

This proposal nicely outlines research on polymeric insulators to model various aging affects. It builds on previously sponsored NSF work and includes some impressive results from that work. Through various diagrams and tables it lays out the problem and the proposed research approach.

Although the proposed work is somewhat incremental and empirical, this is a promising area.